Workshop on Future Directions For Innovation Research In Polymer and Composite Processing

Polymer and polyer composites are finding increasing applications in bothe the civilian and noncivilian sector. Processing of these materials is a significant fraction of the total cost. For cost effectiveness it is necessary to develop novel processing techniques. The workshop with attendees from both university and industry would address the research needs and opportunities in the processing of polymers and polymer composites.